Third National Conference for Recipients of the Presidential Award for Excellence in Science, Mathematics and Engineering Mentoring (PAESMEM)

HRD 03-52997
Contra Costa College is hosting a conference to bring together the recipients of the Presidential Awards for Excellence in Science Mathematics and Engineering Mentoring (PAESMEM). The conference will include K-12 mentoring practitioners and students, as well as active participation by students and faculty from the Center for Science Excellence (CSE) at Contra Costa College. The conference has three main themes: (a) Explore and advance mentoring practices and research as a tool to increase the number of minority students and their success in science careers, (b) Outline and plan a strategy to make mentoring a key institutional component of high schools, colleges, universities, private enterprise workforce, and other institutions, and (c) Network, update, and enhance resource and funding information for current and future PAESMEM awardees.